NSF Supercomputing Summer Institute: Vector Methods in Science and Engineering

In response to a Project Solicitation, Colorado State University submitted a proposal to conduct a Supercomputer Summer Institute in 1987. This proposal and eight others were reviewed by five reviewers at a panel meeting. CSU proposes a two week Institute for 25 students. Instructors will come primarily from the community of researchers at CSU who have been using the Cyber 205 supercomputer on campus for several years. In addition to covering the "nuts and bolts" of effective supercomputer usage, there will be two special emphasis sessions; half of the class will attend each session, which will be conducted in parallel. One session will cover numerical methods, while the other will emphasize modelling in the biological and quantum physics areas. Of the three proposals which offered training on a Cyber 205 supercomputer, the panel felt the CSU proposal was the strongest. This Institute offered adequate honds-on experience with a good balance of intellecual material. A variety of advanced computing architectures will be covered. The panelists were impressed with CSU's plans in the networking area, including access to other supercomputers over the NSFNET. Negotiation has reduced the budget to $63,000, a very reasonable price. In addition, CSU has proposed to include some undergraduates in the Institute under the Research Experience for Undergraduates program, at a cost of $7000. CSU will contribute Cyber 205 resources valued at $50,0000. This is a strong proposal which can be expected to result in a valuable educational experience for the attendees. An award in the amount of $70,000 is recommended.